Numerical Methods for Conservation Laws

Hyperbolic systems of conservation laws arise in many problems where the
conservation of physical quantities such a mass, momentum, and energy are
modeled. These equations must typically be solved by approximate numerical
methods. Discontinuities in the data and/or solution (e.g. shock waves)
cause difficulties in developing accurate and stable methods.

This proposal concerns the development of high-resolution methods and their
implementation as software that can be widely used in solving problems
that arise in many different fields. The P.I. has been actively
involved in developing the CLAWPACK and AMRCLAW software for
multi-dimensional hyperbolic systems. This software is freely
available and allows students and researchers studying a wide range of
phenomena to use the technology of high-resolution methods and adaptive
mesh refinement. This software will be further developed and used to
explore a number of particular applications in science and
engineering. One application concerns computing acoustic or elastic
waves in heterogeneous media. Such problems often arise in geophysics
and materials science, for example. Another application is to
numerical relativity, where there is interest in simulating
gravitational waves that may soon be detectable by astronomers.
This can be accomplished by using a hyperbolic formulation of the Einstein
equations.